Geophysical Fluid Dynamics

A coupled mechanistic and non-mechanistic inquiry is proposed to link quantitatively the elliptical instabilities observed in boundary layer shearing flow to the optimal properties of a thermal efficiency functional. In earlier study, the extremes of the corresponding shear flow functional have determined a unique scaling and detailed average properties of turbulent Poiseuille flow from boundary to boundary. Preliminary results for the thermal functional reproduce the observed 1/4 power and 1/3 power regions of turbulent convection at low and moderate Rayleigh number. Here it is proposed to determine the consequences of optimizing the functional when the surface heat transport is controlled by the convectively induced shear flow, as in the geophysical arena. Preliminary estimates of this extreme suggest an asymptotic heat flux proportional to the half power of the Rayleigh number divided by its logarithm (as in R. Kraichnan's 1962 mixing length theory). The proposed study can lead to quantitative optimum fields of velocity and temperature free of empirical parameters from the range of current laboratory data to convective flows controlled by surface turbulent momentum transport. The comparison of the data with such results will establish the limits of validity of the "efficiency" functional and its thermal generalization as statistical stability criteria.